Maintenance, Development and Innovation of the Barrow Area Information Database and Internet Map Server (BAID-IMS)

Webber 04-54996

The key objective of this proposal is to maintain, develop and innovate the prototype Barrow Area Information Database and Internet Map Server (BAID-IMS) that we have developed over the past year. BAID-IMS is a user-friendly web-based science, logistic and educational informational portal that allows users to access, view and interact with a wide range of spatial data and remotely sensed imagery focused on the Barrow area in northern most Alaska. The area of interest for BAID-IMS spans 280,000 km2 and extends from 100km offshore and north of the city of Barrow, east to Deadhorse, west to the native village of Point Lay and south to the Brooks Range and the village of Anaktuvuk Pass. The application encompasses over 100 data layers in total and includes a range of air-borne and satellite imagery as well as thematic data. Thematic data includes USGS topographic maps, administrative boundaries, infrastructure such as roads, power lines, and native subsistence cabins, nearly 4000 active and historic research sites, vegetation, topographic and hydrographic maps, and distribution/sensitivity maps for select fauna. Users can employ standard Geographic Information System (GIS) tools to zoom, pan, measure distance, identify waypoints for uploading into Global Positioning Systems (GPS), query a range of attribute data layers and make and print their own maps. Federal Geographic Data Committee (FGDC) standard metadata has been compiled for most data layers and provides links to data centers where users can obtain copies of BAID-IMS data for more advanced analysis. A help guide is provided for all tools in the application.

This award will increase the longevity and the functional and operational capacity of BAID-IMS. Specifically, the awardee will (1) Continue acquisition of image, thematic and site data to improve the utility of BAID-IMS; (2) Expand the informational technology and server hardware backing BAID-IMS to enhance operational capacity; (3) Continue to train graduate and undergraduate students in the maintenance and development of BAID-IMS, and continue education and outreach activities illustrating the use of BAID-IMS; (4) Publish, present and advertise the functionality and technical underpinning of BAID-IMS and engage community input in the development of BAID-IMS; (5) Encompass new technologies and opportunities as these arise, including the development of wireless technologies for real time access to BAID-IMS in the field, improved cross-browser compatibility and data export capabilities to hand-held GPSs.